Radar Study of the Middle and Upper Atmosphere

A spaced Antenna Drift radar system will be used for making continuous measurements of middle-atmosphere wind velocities and other parameters that can be applied to deduce meaningful physical quantities. During a three years period, the SAD output will be analyzed and confronted with comparable information obtained from the data of the Arecibo Observatory incoherent scatter radar, and with simultaneous equivalent observations taken in other geographical locations. The involvement of students and faculty in atmosphere research will be of primary importance in this project. A course will take place on the fields of the research to entail a total of 100 students, plus lectures, seminars, and field-trips to the SAD facilities and to the observatory.***//